Electromagnetic Nuclear Physics at Intermediate Energies

After decades of study it is safe to say that the nuclear
interaction, ie. the interaction between quarks, is well understood. However the
manifestations of this interaction in nuclear matter (hadrons) is
only understood in the narrowest of settings. Quark confinement and the
structure of hadrons remain intriguing puzzles. Our proposal will
study these questions in two broad programs:
1) We have identified a few new states that do not fit into the
simple pictures of hadron structure. Other states of this type will be
identified and their decay properties will be measured.
2) Electron induced reactions will be used to study the proton and
other baryons. Hard-scattering experiments will reveal the quark
structure of these states.